CSR: Eager: HPC Virtualization with SR-IOV

The recently introduced Single Root I/O Virtualization (SR-IOV)
technique for InfiniBand and High Speed Ethernet provides native I/O
virtualization capabilities and enables us to provision the internal
PCI bus interface between multiple Virtual Machines (VMs). However,
achieving near native throughput for HPC applications that use both
point-to-point and collective operations on virtualized multi-core
systems with SR-IOV presents a new set of challenges for the designers
of high performance middleware, such as MPI. In order to solve this
problem, this project aims to address the following set of challenges:
1) How to redesign MPI communication library to achieve efficient
locality-aware communication and facilitate fair resource sharing on
modern virtualized high performance clusters, with SR-IOV? 2) Can
communication libraries be designed to deliver the best communication
performance across different VM subscription policies and network
communication modes? 3) What are the the challenges involved in
designing support for advanced features such as, live migration,
Quality of Service, and I/O storage virtualization? and 4) What kind
of benefits, in terms of performance and scalability, can be achieved
by the proposed approach for HPC applications? A synergistic and
comprehensive research plan is proposed to address the above
challenges for HPC Virtualization on clusters with SR-IOV and study
its impact for a set of HPC applications.